Language Learning and its Applications

This project continues a long-term effort in the area of language learning, a problem of great scientific and applied importance. The same formalisms that are used to describe natural languages such as English are being applied in a wide range of areas from physics to biology enhancing the general applicability of results. A characteristic of these language-like formalisms is that their learning takes place on both a structural syntactic plane and a semantic plane, and these are both integral to the system. Although this research started from first principles in biology, linguistics and computation, intermediate results of practical importance are being produced. The research now seeks to overcome some of the limitations that have been uncovered in the original problem formulation, using a more utilized previously. A new approach to meaning representation involves active components, in combination with the more static visual scenes previously used. If successful, this continuing project will provide the first scientifically coherent theory of human concept formation and language learning that covers the full range of essential issues.